Connecticut Young Scholars Program

The College of Engineering at the University of Hartford is proposing to offer an academically sound and a "practically" enriching experience. During the course of six weeks, a non-credit program will increase the math, science, and problem-solving skills of 30 per-college students through computer literacy and project design experience. Engineering role models chosen from local energy, aerospace, and automation industries will supervise participants during the project design phase, and provide a supportive atmosphere by instilling confidence and a sense of accomplishment in the participants. The University of Hartford is specifically targeting women and minorities for the program due to its proximity to school populations with large minority enrollments, and its continued support of local engineering activities of the Society of Women Engineers. This project will significantly increase the probability of women and minorities entering and remaining in an undergraduate engineering program and will involve active follow-up in the form of peer conferences, and continued contact through telecommunication facilities, to assure career counseling the stimulation of pre-engineering preparation.